SBIR Phase I: Data Integration and Analysis for the Pharmaceutical Industry

This Small Business Innovation Research (SBIR) Phase I project aims to provide novel web-based mechanisms to biomedical researchers for the integration and efficient analysis of the vast amount of biomedical literature. The analysis will include the detection of important connections between candidate active substances (drugs), clinical indications (diseases), and even connections to academic experts/specialists on such drugs and diseases. Delivering such novel web-based mechanisms requires research on entity resolution, flexible on-line analytical processing and controlled crowdsourcing. Entity resolution is needed because the pharmaceutical researcher draws his information from multiple sources, which often use different terminologies and identification schemes for the same entity (e.g., the same substance). Controlled crowdsourcing is needed because humans and automatic agents will cooperate in creating a quality information asset, where it is important that there is clear trace to who provided each piece of information and how credible it is. Finally, on-line analytical processing technologies, which have been very successful in corporate business intelligence (e.g., sales analysis) will need to be extended for the purpose of analyzing the biomedical literature.

The broader impact/commercial potential of this project is reduced costs in the drug discovery process and enablement of promising new drug discoveries. The project can impact the effectiveness of researchers and decision making executives working on drug discovery either in pharmaceutical companies or in academic organizations. Impact will come in the following ways: 1) Reduction of costs in the research department by reducing the time that the researchers spend in searching and browsing the vast amount of biomedical literature for interesting emerging ideas. The proposed novel ways of biomedical literature analysis will allow the researcher to obtain, summarize and observe trends in the latest scientific facts, without copiously browsing thousands of citations at a time. 2) Enabling of new drug discovery by revealing drug/disease/molecular target connections that can feed the drug discovery pipeline and would otherwise be overlooked. The impact of discovering novel drugs can be huge given the rising medical costs that the country faces.